Chronology of Hydrothermal Vents, Juan de Fuca Ridge

The P.I.s have been funded for 8 days of ALVIN dives to establish the chronology of active hydrothermal vents at the Fairy castle site on the Endeavor segment of the Juan de Fuca Ridge. Both old and new samples will be used to: 1) provided isotopic and mineralogic measurements: 2) test assumptions of the dating methods; 3) map the chimneys in the study area; 4) model the growth of these chimneys. Visual and analytical data will be compared between the new and old samples. Dating will be based on the disequilibria among isotopes of the U and The decay series, specifically th228/Ra228,Ra228/Ra226 and Pb210/Pb. Fluids collected by ALVIN will be analyzed and accompaying mineralogic studies will be performed under separate contracts to J. Edmond (MIT) and M. Tivey (WHOI), respectively. Benefits will include and evaluation of the Th228 and Pb210 dating techniques and forman improved understanding of the temporal mineralogic and fluid evolution of hydrothermal vent systems.